Earth Sciences Postdoctoral Research Fellowship Award

The Fellow will study the tectonic evolution of the northern East Humboldt Range, Nevada, by integrating the results of detailed field, structural, thermochronologic, and thermobarometric studies to constrain the tectonic history of what are probably the deepest- seated rocks in the Great Basin. Comparisons and contrasts will be made of the macrostructural, micro-structural, petrological, and crystallographic fabric data with the Saxony granulite terrain in eastern Germany, by using scanning electron microscopy, electron microprobe, and x-ray facilities in Zurich, where the Fellow has chosen to spend his fellowship at the Geologisches Institut of the Eidgenossische Technische Hochschule (ETH).